Submarine Arctic Science Program: Technical Support

9526243 This action provides support for the U.S. Navy Arctic Submarine Laboratory for baseline and special data acquisition during an extended scientific cruise of a submarine under the Arctic Ocean ice cover in the summer of 1995. The basis for this support is a Memorandum of Agreement among four operational units of the Navy and three civilian federal agencies, the National Oceanic and Atmospheric Administration, the U.S. Geological Survey, and the National Science Foundation. ***